Concavity Induced Heat Transfer Enhancement

ABSTRACT The principal investigators propose to study a new technique to enhance convective heat transfer from hot surfaces. Arrays of concave indentations will be created on the surface to induce higher rates of heat transfer. This concept was first mentioned by Russian scientists at an international conference held in 1995. The Russian scientists conjectured that tornado-like bursts resulting from flow over the concavities were responsible for the enhanced heat transfer. Preliminary experimental measurements by the principal investigators did show enhanced heat transfer, but not the presence of tornado-like bursts. The proposed work will include comprehensive experimental measurements using the transient liquid crystal technique to establish the full effects of concavities. Three-dimensional numerical simulations using a finite-volume based computer code will be carried out to reveal the flow behavior.